SBIR Phase I: Novel Cellulose Aerogel Thermal Insulation Material for New Construction

This Small Business Innovation Research Phase I project focuses on producing novel cellulosic aerogels insulation materials for new construction. This project will focus on producing ultra-lightweight cellulose aerogels with exceptional high thermal insulation and mechanical performance. In the project new cellulosic aerogels will be designed and fabricated. Samples will be characterized by scanning electron microscopy and surface area/ pore size measurements and then optimized for thermal insulation, mechanical performance and hydrophobicity.

Commercially, ultra-lightweight and hard cellulose aerogel will be useful not only as thermal insulator material for building construction but also as a shock absorbent (military helmet, automobile, etc), in clothing and in space suit applications. Thermal insulation is a major industry serving a wide range of residential and industrial application needs. Development of a new super-insulation material will maximize fuel efficiency in process industries and reduce heating and utility bills in residential markets.